Organic Monolayer Films: Structure-Reactivity Relationshipsat Liquid-Solid Interfaces

This grant is in the general field of analytical and surface chemistry and in the subfield of spectroscopy of liquid solid interfaces. Professor Marc Porter of Iowa State University will use monomolecular films at solid surfaces to develop structure-property and structure-reactivity relationships relevent to surface chemical reactions. The use of electrochemically active functional groups specifically synthesized at the liquid-solid interface will allow the study of surface pH gradients. Optical spectroscopic methods will be used to probe the self assembled thiophenyl linkages at platinum and gold electrode surfaces. Surface infrared, spectroelectrochemistry and surface enhanced Raman spectroscopy will be used to study the reactivity and transformation of functional groups at the monolayer interface. Probe molecules will be used to determine Hammett linear free energy relationships. Spatially oriented arrays of pendant reactive functional groups (carboxylic acids, amines, esters and quinones) will be constructed and the effects of packing density, orientation and composition on reactivity will be explored. Electrochemical parameters will also be explored as a means to control reactivity and structure.